Polymers at Interfaces: A Vehicle for Integrating Research with Education

The involvement of students of any age in different phases of research can be a stimulating experience for both the scientist and the student. We propose to continue a program where cutting edge research is done in partnership of faculty with students starting from high school through the post doctorate. We believe that this arrangement can be beneficial for all participants. The faculty brings the excitement of original research into the classroom, providing role models and motivation for the students. Post doctoral and graduate students, who are heavily involved in the day to day research activities also learn teaching and mentoring skills through working with the undergraduate and high school students. Becoming involved in all phases of the research, undergraduate and high school students, learn first hand what is expected if they are to chose careers in science and engineering.
A central goal of the National Nanotechnology Initiative has recently been identified by an NSF report to be the ability to create "smart" and adaptable materials with atomic level precision and control in economically viable quantities that would "be of broad benefit to industry, economy, health, environment, and society". The report pointed to "our ability to achieve a better understanding of materials at dissimilar interfaces" as a key vehicle to attaining this goal. Polymers, which can be molecularly engineered on a macroscopic scale, while retaining nanometer scale precision, play a central role in attaining this goal. This proposal therefore has two research directions: Engineering biomimetic polymer scaffolds for tissue engineering and fundamental studies of cell mechanical transduction and the desing of self extinguishing polymer nanocomposites that can withstand extreme conditions. This proposal therefore has two interrelated goals; (a) Produce original and relevant research in biomaterials and nanocomposite polymer engineering ; (b) Allow for versatile training of students from high school, undergraduate, graduate through the post-doctorate to develop necessary skills for achieving professional careers in science and engineering.